Research Equipment Grant: Novel Plasma Assisted Vapor Deposition

Cadmium electroplating in cyanide baths is of significant environmental concern. In addition, by-products of cadmium coatings release toxic substances in the environment during their use and disposal. As a consequence, a unique, environmentally and occupationally safe dry plating concept has been developed. The dry plating concept utilizes a novel plasma assisted vapor deposition process and an in situ reclaim technique for cadmium. This dry plating is economical for coating and waste management.